Acquisition of Centrifuges and Rotors

This proposal requests funds for the purchase of an ultracentrifuge, high-speed centrifuge, and rotors for each. This equipment will benefit four investigators in the Departments of Botany/Biology and Zoology who are engaged in research on: isolation and characterization of photosynthetic pigment-protein complexes from algae, regulation of the biogenesis of light- harvesting chlorophyll-protein complexes, hormonal regulation of lipid metabolism in fish, and nitrogen metabolism of plant cell suspension cultures, regeneration of plant cell cultures. This instrumentation will provide an important stimulus to a group in the process of building a synthetic program in modern plant biology.